Determination of Internal Structure Mineralogy and Porosity of Hydrothermal Precipitates Using X-ray Computed Tomography(CT)

This project's primary goal is to develop an X-ray Computed Tomography (CT) for efficient estimation of mineralogy and porosity hydrothermal chimneys. The P.I. will develop/modify software and run Test scans to determine optimal settings for performing CT scans.